NSF Student Travel and Registration Grant for IEEE/ACM International Conference on Software Engineering 2022 (ICSE)

This award provides funds for students and junior faculty to attend the International Conference on Software Engineering (ICSE 2020), which takes place in Pittsburgh, Pennsylvania in May of 2022. ICSE is the flagship technical conference in the field. The conference is a venue for technical presentations of the latest research results, interactions between academia and industry, and international collaborations.

The award seeks to increase and broaden participation in mentoring programs such as the Doctoral Symposium, the New Faculty Symposium, and the Student Mentoring Workshop. The objective is to provide education, training and mentoring and to nurture a globally-aware workforce of research and educators within the US and build the community of researchers in the field of Software Engineering.